U.S.-Venezuela Symposium on Mathematical Logic

9809924 Friedman This Americas Program award will fund a Latin American Symposium on Mathematical logic, to be held in Merida, Venezuela, July 6-10, 1998. Organizers are Dr. Sy D. Friedman, Massachusetts Institute of Technology, (M.I.T.), and Dr. Carlos A. Di Prisco, Instituto Venezolano de Investigaciones Cientificas (IVIC). The meeting brings together some of the top researchers in logic from the United States and other countries. Participants will include a diverse group of junior and senior researchers from a wide range of geographical areas and universities within the United States and the rest of the world. It will provide an opportunity for young researchers from US and Latin America to gain knowledge of current research in their field, and at the same time, forge relationships with each other that may lead to future research collaborations.. Logic is a broad field, and each of its principal subfields, Theory, Model Theory, Recursion Theory, and Proof Theory, will be represented in the discussions and presentations. The meeting will be preceded by short courses aimed at enhancing the benefits that the graduate students and young researchers will derive from the meeting. ***